Calculations in higher algebraic K-theory and related functors via derived categories

The main part of the proposal deals with the systematic development of
higher Grothendieck-Witt groups, alias hermitian K-theory, of exact
categories and schemes, from the point of view of derived categories, and
of certain Waldhausen categories with duality. In particular, the PI will
investigate how to remove the ubiquitous assumption of "2 being invertible".
In a second part, the wealth of known results on the structure of derived
categories will be applied to yield new calculations in algebraic
K-theory, higher Grothendieck-Witt theory, stabilized Witt-theory and
cyclic homology. In a third part, the relation between hermitian K-theory
and A^1 homotopy theory will be investigated.

Algebraic K-theory, higher Grothendieck-Witt theory, stabilized
Witt-theory and cyclic homology are "(co-) homology theories" used to
study solutions of systems of polynomial equations. Cohomology theories
have first been developed by algebraic topologists in order to study
properties of geometric objects which don't change under small
deformations. Later, in order to study systems of polynomial equations
(whose properties can drastically change under small deformations),
algebraic geometers/topologists developed analogous cohomology theories
in an algebraic context. They allow us to use our intuition from 3
dimensional space and our experience with working with real numbers, to
understand polynomial equations in higher dimensions, and in other number
systems, (used e.g in cryptography) where 1+1 could be equal to 0. In
order to study these cohomology theories one needs to break up their
values into simpler building blocks, which, in general, is a very
difficult problem. Frequently, however, one can observe this "breaking up
into simpler building blocks" on the level of derived categories, which
are algebro-categorical objects attached with systems of polynomial
equations. This project investigates the relationship between derived
categories and the cohomology theories mentioned above.